CAREER: Dark Matter and Black Holes Over Cosmic Time

CAREER: dark matter and black holes over cosmic time

Abstract

AST-0642621

PI: Tommaso Treu

Dr. Treu will use innovative observational strategies and analysis
techniques to map the evolution of the internal structure of spheroids
(i.e. elliptical and lenticular galaxies, and bulges of spiral galaxies)
over cosmic time, with a focus on the redshift interval z = 0-1, an era
when spheroids undergo substantial evolution. This research places its
emphasis on dark matter and black holes. Whereas recent studies have made
progress on the evolution of their stellar populations, empirical data
on the co-evolution of stars, dark halos, and black holes are needed to
understand the formation of spheroids in a cosmological context. The
new observations made under this award will provide an empirical benchmark
for the next generation of theoretical models of galaxy formation.

Dr. Treu will also work on several educational/public outreach components
as a part of this award. The general public and K-12 student efforts,
based on a collaboration with the Santa Barbara Museum of Natural history
(SBMNH) and the Las Cumbres Observatory (LCOGT), will consist of a series
of public lectures in the Museum auditorium. In addition, the LCOGT is
donating a 32" telescope to the UC-operated Sedgwick Natural Reserve.
Dr. Treu will work with K-12 teachers and the SBMNH to establish an
astronomy curriculum at Sedgwick. At the undergraduate non-science major
level, Dr. Treu is developing, in collaboration with the UCSB Religious
Studies (RS) and History (H) departments, a course entitled "Origins",
which will be organized around questions such as "What's the Universe
made of?". For each question, students will be exposed to the distinct
methodologies employed by scientists, philosophers, theologians, so as to
appreciate the essence and the importance of the scientific method.

This award is funded by the NSF Division of Astronomical Sciences